A Modified Poisson-Boltzmann Study of Cylindrical Polyelectrolyte and Spherical Colloidal Solutions

Professor Bhuiyan is supported by a grant from The Theoretical and Computational Chemistry Program to develop improved theories for understanding the structure and thermodynamics of polyelectrolyte and colloidal solutions. Such theories are important in understanding the properties of macromolecular systems including the interpretation of experimental data on DNA structures. Professor Bhuiyan will apply the methods of statistical mechanics of electric double layers, in particular the Modified Poisson-Boltzmann (MPB) theory, to a study of the structural and thermodynamic properties of cylindrical polyelectrolyte and spherical colloidal solutions with the following objectives: 1) to extend the recently derived MPB theory for cylindrical polyelectrolytes to ionic cloud distributions surrounding a spherical colloidal particle; 2) to study cell models for the cylindrical polyelectrolyte and spherical colloidal solutions with and without added salt; 3) to compare the results of the MPB theory with classical Poisson-Boltzmann theory, liquid structure integral equation calculations and computer simulations; and 4) to consider further development of the MPB approach to these systems in light of the results obtained.